RAPID: Exploring the Effects of Parent-Child Interactions on Children’s Learning about Handwashing Behavior and Disease Prevention

This RAPID project will study connections between children's hygiene habits and learning about science, such as the science of disease transmission. It builds upon findings from the investigator’s prior research of parent-child interactions observed in children’s museums and will extend this research to home settings. This research will focus on understanding how goal-setting, whether it is parent-directed, child-directed, or jointly-directed, affects children’s engagement with a handwashing activity and their subsequent learning about handwashing behavior and preventing the spread of disease. More specifically, the intent is to examine how goal-setting during an interactive demonstration between parents and children relates to children’s recollection of the activity and their handwashing behavior afterwards. This project is funded by the Advancing Informal STEM Learning (AISL) program which seeks to advance new approaches to, and evidence-based understanding of, the design and development of STEM learning in informal environments.

During a pandemic, it is vital that children establish good hygiene habits and understand the importance of handwashing for the prevention of disease transmission. What is most important is that young children wash their hands frequently and follow good hygiene habits, such as using soap, when doing so. This study examines the role parents might play in engaging children to wash their hands. The project team has developed a short 10 minute intervention that parents and children can participate in while using everyday household items. Utilizing remote technology, parents and children will be guided through this intervention while video recording their behavior. Families will be presented with a structured activity for parents and children to participate in together. This activity will be focused on how handwashing, and particularly the use of soap during handwashing, helps prevent the spread of germs. Parent-child interactions will be coded using schemes for goal setting that the investigator developed in prior work. Directly after their participation and one week later, children will be asked to reflect on the activity to understand what they remember about it, and to understand whether they have encoded the importance of handwashing for preventing the transmission of disease. Parents will also be asked to track their children’s handwashing to see whether aspects of these reflections, as well as individual differences in how parents and children interact during the activity, promote better engagement with handwashing. The data generated will allow researchers to develop best practices for interventions centered on children’s handwashing and the prevention of disease transmission. Knowing such practices is critical for reintegrating children into social settings such as schools and children's museums.